A Longitudinal Study of Eight Engineering Colleges using the SUCCEED Longitudinal Database

This work is proposed as a starter grant to support a follow-on effort to PFSIVIETE fellowship
grant number 9896381, "A Longitudinal Study of Eight Engineering Colleges using the
SUCCEED Longitudinal Database." The primary goal of the original fellowship was to prioritize
factors that contribute to engineering student success by studying programs designed to help
engineering students at nine institutions. The breadth of data required to conduct such an analysis
could not be collected within the fellowship tenure, so this greater goal remains a subject for
continuing research. During the fellowship tenure, a number of individual studies were
completed, and results from these have been published or are being developed in collaboration
with the investigators who originally designed and implemented the programs under study. This
request asks for support necessary to complete the study of data already collected and to collect
additional data needed to begin to address the more aggressive goal of characterizing factors that
contribute to engineering student success. The Southeastern University and College Coalition for
Engineering Education (SUCCEED) will continue to significantly leverage this work.